SHF: Medium: Collaborative Research: From Molecules to Complex Shapes: Programming Pattern with DNA

Development in humans and other higher organisms creates complex,
precisely defined multicellular structures and patterns. These
structures are the result of molecular programs that are stored in the
sequences and concentrations of biomolecules and are executed when
molecules interact and change state through chemical reactions. The
goal of this proposal is to understand how biochemical systems can be
reliably programmed to form asymmetric patterns with multiple layers
of organization. This proposal is part of a general goal to understand
how to program global behavior and structure based on local rules,
which a key intellectual challenge in many areas of computer science.

The PI's propose that complex, hierarchical chemical patterns can be formed
by systems in which the molecules collectively execute a molecular
program for pattern formation. The PI's will develop a
chemical programming language in which information from simple input
patterns is integrated by logical operations to form new pattern
regions. These logical operations are then systematically integrated
into larger programs, allowing the generation of patterns with
complex, multiscale structure similar to that seen in
biology. Designed synthetic DNA molecules that together act as circuit
elements will be used to implement this language. DNA molecules are
ideal substrates for a molecular programming approach because they
have complex sequences with predictable behaviors and interactions.
This research is tightly integrated with an outreach program that will
develop an educational program dedicated to teaching the
interdisciplinary skills that are necessary to be successful in
molecular programming.
,